Mechanisms of Dynorphin-Induced Neurotoxicity

Dynorphin A is a polypeptide which has recently been detected throughout the mammalian neuraxis, with relatively high concentrations in the dorsal horn of the spinal cord. It is thought to be the endogenous ligand for the kappa opioid receptor. However, it is unique among endogenous opioids in that intrathecally administered dynorphin results in antinociceptive properties in rats and disturbances of motor function with flaccid hindlimb paralysis. Dr. Lawrence Isaac will investigate the opioid and non-opioid actions of dynorphin A by studying the fragments of this peptide and investigating their behavioral actions. The delineation of the pharmacological effects of dynorphin is important since this substance can be used as a pain killer if it's neurotoxic properties are understood and brought under control.